Moduli Spaces and Integrable Systems

Abstract

Award: DMS-9971966
Principal Investigator: Emma Previato

The project consists of three parts and concerns constructions in
algebraic geometry and solutions to partal differential
equations. Part I uses differential algebra to investigate open
problems of the KP hierarchy: Ritt's theory of constructive
differential algebra will be applied to characterize maximal
commutative rings of ordinary/partial differential operators;
differential resultants will be implemented to express
higher-dimensional reciprocity laws. In part II, a connection is
established between rank-2 vector bundles with canonical
determinant over an algebraic curve, and varieties containing the
canonical curve. By this technique, equations for important loci
of bundles will be sought, as well as the significance of these
loci in 2-Theta space, where the moduli space of bundles embeds,
with applications to the Schottky problem, for the 2-Theta space
of a principally polarized abelian variety. These equations for
moduli spaces of bundles have potential applications to explicit
integration of systems of Hitchin type. Part III will link
integrable systems and Frobenius manifolds, by producing a
symplecto-geometric interpretation of canonical and flat
coordinates on Hurwitz spaces.

The proposed work spans the areas of algebraic geometry and
differential equations. While algebraic geometry has been a
field of basic research since the nineteenth century, in recent
years it has found applications to mathematical physics. This
project explores new techniques to give answers to open problems
of classical algebraic geometry such as equations for certain
moduli spaces, or the number of polynomials of a given type that
define a canonical curve; it also explores new applications of
these algebraic structures to the exact solution of partial
differential equations that model physical phenomena, from water
waves to quantum-field-theory. One new component is the use of
computer algebra systems, or symbolic computation, to implement
classical theories. The computational focus will be an explicit
definition of algebraic varieties via differential equations; by
running the program through several classes of examples, which
used to be unfeasible manually, conjectures will be tested and
properties sought to characterize unknown features of these
spectral varieties. Applications of technology to fields such as
algebraic geometry has attracted great recent interest, including
programs like "Symbolic Computation in Geometry and Analysis" at
MSRI (Fall 1998). This project will produce MAPLE packages which
will be made publicly available to other researchers.